I-Corps: Translation Potential of Digital Twin-Enabled Autonomous Coordination for Sensors and Extremely Miniaturized Precision Machines

The broader impact/commercial potential of this I-Corps project is an autonomous robotic platform that enables continuous maintenance of railroad tracks. Track defects remain a leading cause of freight derailments, and current maintenance relies on large, single-function machines that are expensive to mobilize and are scheduled in batches during narrow track maintenance windows. Because mobilizing this maintenance equipment is costly, operators tend to defer preventive work and address defects reactively after they disrupt service. This technology is a compact, rapidly deployable autonomous vehicle that inspects track and performs targeted repairs, closing the loop between detecting a defect and fixing it on a single system. This may shift railroads from reactive, schedule-driven maintenance toward proactive, data-driven operations and lower the cost of intervention. The initial target user is the maintenance-of-way and engineering departments at North American freight railroads, as well as transit and passenger rail systems. Potential benefits include earlier defect detection, less track maintenance time, longer asset life, and reduced exposure for maintenance crews working on live track.

This I-Corps project utilizes experiential learning coupled with first-hand investigation of the industry ecosystem to assess the translation potential of an integrated system combining autonomous rail-deployed robots, a modular tool interface, and a machine learning-driven digital twin platform. The technology uses compact autonomous rail vehicles, a modular tool interface that lets one base vehicle perform multiple inspection and repair tasks, and a machine-learning-driven digital twin that forecasts asset degradation and coordinates fleet operations. It applies topological optimization to miniaturize heavy industrial equipment into compact robotic platforms, and novel sensor stacks that use machine learning to interpret noisy field data for accurate state estimation. Current methods rely on large, single-function machines and fragmented workflows. This technology is designed to deploy a coordinated fleet of maintenance robots, integrating sensing, planning, and control into a unified system. While railroad maintenance is currently constrained by limited track access, slow workflows, and reactive operations, this technology may improve productive maintenance time and improve work safety and track repair.